High Resolution Observational Studies of the Structure and Evolution of Galaxies

The research is aimed at determining the distribution, motions and physical conditions of the various components of the interstellar medium in galaxies. The purpose is to study the relationship of these components to each other, to the spiral structure, and to the star formation processes in galaxies. While the general evolutionary cycle between the interstellar medium and the stars in galaxies is understood, the detailed underlying processes are still not clearly delineated. In order to study the interstellar medium in external galaxies with sufficient resolution, the Principal Investigators will use the relatively new Hat Creek millimeter-wavelength telescope to observe the neutral atomic hydrogen (HI) component and the Very Large Array (VLA) radio telescope to observe the molecular component and the relativistic electrons. An optical imaging Fabry-Perot spectrometer will be used to probe the ionized gas. Such comparative detailed analyses will further the understanding of the basic processes of galactic evolution. How galaxies evolve with time has relevance to many basic questions in astronomy such as galaxy formation, cosmology, and the origin of the structure of galaxies and of their morphological types.